Digital Government: Integrating Metadata Development, XML, and DBMS Search and Query Techniques in a State of Wisconsin Land Information System

EIA-0091489
Nancy Wiegand
University of Wisconsin

Digital Government: Integrating Metadata Development XML, and DBMS Search and Query Techniques in a State of Wisconsin Land Information System

This project will involve several state, local and national agencies in developing a query able database of heterogeneous spatial and textual data. The data will continue to be held in various local and other databases, but will appear to be integrated though the system to be developed. Automated development of Metada and semantic conversions will be required. Three technical thrusts are i) to locate and search data sources, and to support user manipulation of the data. XML will be an important technical tool in the project in expressing Metadata.